CAREER: Ionic Polarized Polymer Light-Emitting Diodes Fabricated by Inkjet Printing Technology

Abstract Program: Physical Foundations of Enabling Technologies CAREER Competition Proposal Number: ECS-9733355 Principle Investigator: Yang Yang Title: Ionic polarized polymer light-emitting diodes fabricated by ink-jet printing technology Conjugate polymers are a novel class of semiconductor materials that combine the optical and electronic properties of semiconductors with advantages of simple processing and flexible mechanical properties of polymers. Due to its low cost and ease of fabrication this unique class of materials will revolutionize many existing electronics and bio-medical technologies. This CAREER proposal will engage in research and education activities to lay down the foundation for a consolidated polymer electronics research center at UCLA. In particular, the research is aimed developing new and novel polymer light-emitting diodes using an innovative ink-jet printing technique. the particular innovation of this proposal is the novel and potentially low-cost fabrication of large-area displays.